RUI: Acquisition of a Transmission Electron Microscope

This proposal requests funds to purchase a transmission electron microscope that would replace a JEM-7A, the only TEM in existence at Northern Arizona University. The microscope will benefit ten ongoing projects. These projects include: studies on the cellular biology and ecology of secretion and encystment in hypotrichous ciliates, quantitative ultrastructural analysis of cereal embryogenesis, identity, ultrastructure and function of a unique gut symbiont from a Red Sea Surgeonfish, ultrastructural analysis of cyanelles isolated from glaucocystis, ultrastructural study of bacterial outer membrane sites and their relationship to ice nucleation, and quantitative ultastructural analys is of vascular resistance to aphids. Replacement of an obsolescent machine will enable the investigators to conduct meritorious research. Support is recommended.